Theoretical and Experimental Studies of Liquid-X Interfaces

Professor Stuart A. Rice is supported by a grant from The Theoretical and Computational Chemistry Program to perform both theoretical and experimental studies on the interfaces between liquids and surfaces of various kinds. This research is of fundamental importance in understanding the way in which liquid molecules orient themselves when in contact with a surface. Rice plans to continue his work on studying liquid surface interfaces along the following directions: 1) to study the influence of valence and size differences between alloy components on the longitudinal and transverse correlation functions in liuqid-vapor interfaces; 2) to determine the influence of the contact medium on the structure of the metal side of a liquid metal-X interface; 3) to perform a theoretical study of the anisotropic transport of matter and momentum across an inhomogeneous liquid metal-X interface; 4) to perform a theoretical analysis of the metal-to-nonmetal transition in an inhomogeneous system; 5) to perform both experimental and theoretical studies of supported monolayers of long chain amphiphile molecules; 6) to perform experimental and theoretical studies of the kinetics of phase changes in liquid supported monolayers of amphiphile molecules; and 7) to determine the dimensions of adsorbed polymer molecules using light scattering with incident evanescent radiation.